U.S.-Portugal-Switzerland Cooperative Research: Multiscale Models of Blood Flow in the Cerebral Vasculature

0104680
Robertson

This three-year award for U.S.-Italian-Portuguese-Swiss cooperative research involves Anne Robertson of the University of Pittsburgh and Alfio Quarteroni of the Ecole Polytechnique Federale de Lausanne, Switzerland and Adelia Sequeira of the Instituto Superior Tecnico in Lisbon, Portugal. Alessandro Veneziani of the Politecnico di Milano in Italy is a member of Professor Quarteroni's group and will also participate. The multinational and multidisciplinary team proposes to develop multiscale models of blood flow in the human vascular system. Specifically, they plan to evaluate multiscale models from the perspective of mathematics, numerical analysis, and physics/engineering.

The Italian group brings expertise in mathematical fluid mechanics for Newtonian and non-Newtonian fluids; the Swiss group will contribute expertise in finite and spectral element methods, numerical simulation of blood flow in human cardiovascular systems, fluid-structure interactions, and multiscale modeling; the PI has experience in continuum mechanics, including fluid mechanics and numerical simulation; and the Portuguese group is knowledgeable in mathematical analysis and numerical methods in fluid mechanics. The goal of the collaboration is to develop a more sophisticated numerical simulation tool, using a newer fluid dynamics model, that can be used for understanding and evaluating clinical treatment strategies for vascular disease.